Young Engineers and Scientists: A Mentorship Program for Talented High School Students

The Southwest Research Institute will initiate a three-week, commuter, Young Scholars project in applied physical sciences and engineering for 20 students entering the 11th and 12th grades. This summer and academic year program will emphasize computer skills applied to research on electronic circuit design. Students will conduct research at the Institute throughout the year. They will build a digital clock from schematics, create computer programs to solve equations, and observe and discuss research methods and ethics.